Computational Methods for Parametrized Equations

This project concerns the design and study of computational methods for the solution of nonlinear systems of equations involving multi- dimensional parameter vectors. Such systems arise frequently in equilibrium problems in science and engineering where, generally, interest centers on the computational assessment of the change of the solutions under variation of the parameters. The work utilizes that under conditions, which typically hold in practice, the set of all solutions forms a differentiable manifold in the combined state and parameter space. It has been shown previously that a consistent use of differential geometric concepts and techniques provides a new and powerful tool for the development of the desired computational methods for analyzing the shape and properties of the solution manifold. This project will investigate the further development of a manifold- approximation algorithms, of the resulting computational errors and of sensitivity measures for the computed solutions, of the reduced basis method and its errors in the multi-parameter case, and of methods for solving ordinary and certain partial differential equations on implicitly defined manifolds.